Integrated Sensing: Network Support for Distributed Sensing Applications

At the core of the next generation of networking applications
and technologies lies the potential of embedding sensing and
actuating capabilities in the network so as to support a
variety of monitoring and controls applications. In this
proposal we target applications that require stringent
quality of service guarantees, e.g., applications needing
global snapshot(s) of the state of a physical attribute,
or requiring correlating various such attributes. For example,
one might jointly track the wind speed and the density of
a given pathogen to create evolution models. To support such
applications while achieving high sensor utilization we
propose to investigate two complementary problems:
(1) What are fundamental characteristics and requirements of
estimation and control applications
drawing spatio-temporal data from networked sensors; and
(2) What types of network support, e.g., sensing `primitives'
and resource/traffic management mechanisms will be
critical to enable wide-spread shared usage of such networks.
Due to the expected heterogeneity of sensor networks
and possible mismatch between a sensor's `capacity' to process
queries and the network bandwidth delay product,
achieving timely coordinated responses from a potentially large
set of sensors shared by multiple users may be difficult.
This is exacerbated by the inherent asymmetry of communications
associated with such sensing activities, i.e., one-to-many queries
resulting in many-to-one sensor responses. As a result one can
expect unpredictable bursts of traffic, network hot spots, and
degradation in performance. As part of the proposed research
we will investigate these problems from the perspective of
the applications, the network and the sensors.